Dissertation Research: Cultural Expressions of Socio- Economic Differentiation Among the Kuria of Kenya

This dissertation research award will help an anthropology graduate student finish studying social and economic differentiation in southwestern Kenya. The project will examine the distribution of resources, homestead composition and farm operation, and oral histories and native texts and discourse in two locations, a market town and a poor, remote community. The goal of the research is to analyze the factors that produce differences between households, and to study how these differences are conceptualized by the people. Methods include surveys, participant observation and structured interviewing. This research is important because socio-economic differences within and between communities are a fundamental fact of life and source of problems, especially in the developing world. Research on the causes of the differences, and how people rationalize and explain these differences, can help us understand how to deal with the problems and conflict that arise.